Interface `90: An Interdisciplinary Conference on Science, Technology and Humanities, October, 1990

INTERFACE is an annual, national interdisciplinary conference devoted to the study and discussion of the interrelationship between the sciences, technologies, and humanities. Created in 1976, INTERFACE is co-sponsored by the Humanities and Technology Association and the Humanities and Social Sciences Department of Southern College of Technology. The conference provides a forum for the examination of new and ongoing problems and issues that cut across the natural and physical sciences, technology, the social sciences, and the humanities. This examination includes the ethical considerations that must be addressed when such issues and problems are raised. The conference attracts experts in such fields as physics, chemistry, ethics, literature, history, engineering, computer science, sociology, and the fine arts. This modest award will help INTERFACE to support some administrative and special publication costs associated with the conference, while its directors developing plans to make it self-sustaining in future years. There are very few professional settings where discussion of interdisciplinary research interests is possible. This conference is one of them. The organizers and host organizations have a track record of success. This modest request will enable the project organizers to develop plans and activities that will give the conference more visibility and a better base of long-term support. Results will improve interdisciplinary communication. A one year award is recommended.